Operation Physics: Phase Two

Phase Two of Operation Physics continues this national project to improve the teaching and learning of basic physics concepts in the upper elementary and middle school grades. Thirty-six three-member leadership teams, geographically distributed throughout the United States will participate in an intensive activity-oriented three-week training program held at San Diego State University. This team, consisting of a teacher, a supervisor or administrator and a college/university person from the local region, will focus on the physics content typically identified for inclusion in the K-8 curriculum, current methods and materials appropriate for teaching physics to elementary and middle school children, recent research related to learning theory and teaching practice using especially designed workshop kits developed during the first phase of the project. The teams will also receive training and assistance in using these kits to plan and conduct a required number of inservice workshops in their own area. The Operation Physics teams will be assisted in their dissemination efforts through the services of the Education Division of the American Institute of Physics and the Operation Physics State Facilitators. These State Facilitators will coordinate the implementation and dissemination of the Operation Physics programs in the state. The cost-sharing for this project represents a significant part of the total cost. Contributions from the school districts, San Diego State University, and AIP represent an amount equal to 49% of the NSF request. //